EMSW21-RTG: Geometry, Topology, and Operator Algebras

Abstract

Award: DMS-0838703
Principal Investigator: Robion C. Kirby, Peter Teichner

This award is funded under the American Recovery and Reinvestment
Act of 2009 (Public Law 111-5).

The principal investigators (Robion Kirby and Peter Teichner),
with the cooperation of the other senior personnel (Professors
Ian Agol, Robert Bryant, Michael Hutchings, Vaughan Jones, John
Lott, Constantin Teleman, and Alan Weinstein), propose to
establish a research training group of undergraduates, graduate
students, postdoctoral fellows, and senior faculty at the UC
Berkeley mathematics department in the areas of geometry,
topology and operator algebras. The objectives are to improve
the recruitment of undergraduates into graduate studies in
mathematics, and the training of graduate students and
postdoctoral fellows, by establishing a strong, coherent
interdisciplinary group in the above areas. These areas are
coherent in that they have at their center problems and methods
from mathematical physics, such as the count of pseudoholomorphic
curves to calculate Seiberg-Witten and Heegaard-Floer invariants
of 3- and 4-dimensional manifolds, or the use of Ricci flow for
understanding smooth manifolds, or the use of mathematical
notions of quantum field theories to describe interesting
algebraic topology, like elliptic cohomology.

A major difficulty for young people entering research in
mathematics today is the increasingly interdisciplinary nature of
the subject and the range of technical tools required.
Traditional seminar formats are becoming less effective at
training. We will work with the existing strong programs of the
mathematics department to create a series of new and restructured
activities, ranging from the undergraduate level to advanced
research. These will include undergraduate research seminars
during the school year led by graduate students under the
supervision of senior faculty, undergraduate and graduate summer
workshops, elementary level graduate student seminars, a hot
topic seminar, and a weekly joint research seminar in which
each research talk is preceded by a background lecture.

The areas of geometry, topology and operator algebras covered in
this proposal are central to mathematics and mathematical
physics. UC Berkeley has an exceptional group of faculty in this
area, and a long history of successfully training graduate and
undergraduate students. However, these subjects have grown more
and more interdisciplinary requiring graduate students to know
much more than in the past, and more guidance is required of
senior mathematicians. To improve the training of graduate
students and postdocs, they should also improve the quality of
research that they produce. The cross-group interaction will
facilitate a number of interdisciplinary research projects that
we intend to pursue, including: Elliptic cohomology and quantum
field theory, K-theory and topological field theories,
Semi-infinite aspect of elliptic cohomology, and Four-dimensional
field theories.